Computation Facilities for Intermediate Energy Physics

This is an equipment proposal to provide a MicroVAX II computer system for use by the VPISU Intermediate Energy Nuclear Physics faculty and students involved in NSF sponsored research. Essential features of the system include: fast processing time for data replay, work station environment, large disc space, laser printer, graphics capability, and appropriate software.